Biotechnology for the Environment

ABSTRACT

PIs: Suflita and Wall
Institution: U of Oklahoma and U of Missouri
Proposal #: DEB-0091243

The PIs request a travel grant to support up to 10 US early career scientists (postdocs) for up to 6 months in European laboratories. While there, they would learn the latest bioremediation techniques being developed in the labs and participate in research and seminar activities. A counterpart EU proposal has been submitted to the appropriate European institution to support the travel of up to 10 European postodcs to labs in the US for a similar purpose. This young scientist exchange program grew out of the US/EC Task Force on Biotechnology activities in the area of Environmental Biotechnology. It follows up successful multi-national workshops held in Brussels in 1994 and Granada in 1996 and an intensive training course held at Rutgers University in 1998. The two PIs who will manage the travel grants have been active members of the Environmental Biotechnology Working Group that has developed the activity agenda following the 1994 workshop.